Travel Support for U.S. Participants in the Ninth Inter- national Conference on Chemical Education

Much appears to be happening in science education throughout the world, much of which is quite successful and very worth sharing. This proposal would support the participation of approximately twenty chemical educators in the Ninth International Conference on Chemical Education, to be held in Sao Paulo, Brazil, 26-31 July l987. Elementary, middle, high school, and college teachers will be represented in the delegation, with the precollege teachers comprising 70% of the total. In order to facilitate the development of international teacher support networks at the conference, and the further dissemination of knowledge gained in Brazil, the teachers selected will agree to undertake a specific information-gathering activity at the conference. Each teacher will select an issue of concern to chemical educators in this country and, through network activities in Sao Paulo, collect the information needed to compare other countries' efforts to address this issue with efforts in the United States. On returning from the conference, they will be expected to write a paper discussing relevant approaches to the issue selected and submit this paper to the American Chemical Society for review. Seven of these papers will be selected for presentation during a special symposium at the ACS Division of Chemical Education's Tenth Biennial Education Conference to be held during July l988.